Elements: Atomic Portal - Beyond the Core Community

Many of the important technologies of the coming decades, from ultra-precise clocks and quantum computers to sensors that may detect the elusive dark matter that fills the universe, depend on accurate knowledge of how individual atoms and molecules behave. Today, this knowledge is scattered across thousands of scientific articles, supplementary documents, and aging databases. No single trusted resource brings together the best computer-calculated values and the most accurate laboratory measurements. The result is that researchers and engineers waste considerable time searching for, checking, and re-checking information that they need to design experiments, build new instruments, and interpret their results. This project addresses that problem by expanding a free public online platform, already used by thousands of researchers worldwide, into a comprehensive scientific data resource. New features include broad coverage of atoms and molecules important for emerging quantum technologies, automated software that continuously reads scientific literature and extracts trustworthy numerical results, and a conversational interface that allows users to pose detailed scientific questions in plain language and receive properly referenced answers. The platform accelerates discovery in academic laboratories and supports the quantum technology industry. Students who participate in the project receive valuable training at the intersection of physics, computer engineering, and modern artificial intelligence. Other projects can adopt the open source software building blocks of the project.

Accurate atomic data are essential for modern quantum technologies, ultracold-atom physics, precision measurements, astrophysics, and plasma modeling, yet no previous platform provided the comprehensive, high-precision atomic and molecular data needed by these communities. Under previous NSF support, the project team developed the ATOM portal, a free, open-access cyberinfrastructure that delivers rigorously curated, uncertainty-quantified atomic data from state-of-the-art calculations, augmented where possible by high-precision experimental measurements. Building on this foundation, this project transforms the ATOM portal into a next-generation, artificial intelligence (AI)-enabled data and computation platform that greatly expands the coverage of high-precision atomic data; provides AI tools for creating centralized, curated molecular bibliographies and spectroscopic datasets for molecules of highest interest to the ultracold and quantum molecular communities; and includes powerful new tools for natural-language querying, AI-assisted bibliographic discovery, and automated data extraction and verification. The project advances both domain science and cyberinfrastructure by integrating state-of-the-art atomic structure theory, artificial intelligence, and modern software engineering. Natural-language interfaces and web Application Programming Interfaces (APIs) lower the barrier for both academic and industrial users, enabling engineers and scientists who are not atomic data specialists to query and integrate high-precision data into their work. All software and data artifacts are released under open licenses and integrated with institutional data catalogs and related national efforts, ensuring long-term accessibility and reuse. The AI retrieval and validation tools, designed to be domain agnostic, provide a model for how AI can be safely and effectively applied to scientific data curation across many disciplines.

This award by the Office of Advanced Cyberinfrastructure is jointly supported by the Physics at the Information Frontier Program in the Physics Section of the Directorate for Mathematical and Physical Sciences.